Collaborative Research: Recombinant Production of Enzymes from Hyperthermophiles: Effects of High Temperature and Pressure

9632554 Robb This proposal is on research to examine two key issues in the development of enzymes and other proteins from thermophilic microorganisms which are to: (1) develop processing methods to obtain significant quantities of these enzymes for further investigation and potential application, and (2) examine the mechanisms of pressure-induced stabilization of proteins from extreme thermophiles and devise approaches to manipulate the thermostability of these enzymes. Site-directed mutagenesis is to be used in a systematic way, along with biocatalytic studies at elevated pressures to elucidate the effects of pressure on protein thermostability and the interaction of subunits in these multimeric enzymes. ***